Microwave Plasma Diamond Deposition at High Growth Rates

Recently developed CVD diamond thin films can be used in a wide variety of applications from electronics to cutting tools, infrared optics to abrasives. High quality diamond films are presently grown at rates of about 1 micron/hr. Crucial to the successful commercialization of the technology is the attainment of larger growth rates. Atmospheric pressure plasma torches have been used to obtain high diamond growth rates but are limited to small areas. A high power density, 1 kW/cm2 at 200 Torr pressure, microwave plasma discharge is proposed to increase growth rates by at least one order-or- magnitude. A microwave discharge is chosen for scale-up of the deposition area, and the high quality films which are obtained. A study of power density, neutral pressure, substrate temperature and plasma chemistry is proposed, for understanding the mechanisms for diamond growth. A commercially available high growth rate diamond reactor could be designed as a direct consequence of this research.